Hampton University Robert Noyce Teacher Scholarship Program

Hampton University (HU) School of Science and the Division of Professional Education are collaborating to support the implementation and evaluation of a HU Robert Noyce Teacher Scholarship Program which prepares STEM undergraduate majors and/or STEM professionals to become K-12 science teachers in the Hampton City School District (HCSD). The project builds on the University's existing high quality teacher preparation program in which the emphasis is on modern pedagogical approaches that stress student inquiry in the classroom. The program provides the students scholarships and mentoring during their time in the classroom, and supports them as teachers during the induction year. The project plans to prepare 30 highly qualified elementary and secondary teachers in biology or mathematics over five years.
.